Theory of Electrons in Solids

The interplay between the effects of the external forces on the electrons and the effects of the electron-electron interaction is to be studied in a variety of physical systems: (1) semi- conductor heterostructures, (2) superconductors. The observable consequences, particularly in optical properties, will be related to experiments.